Chaos and Disorder in Mathematics and Physics Conference

This project will support American participants of the conference "Chaos and Disorder in Mathematics and Physics" taking place on September 18-24 in Bressanone, Italy. This is an international scholarly meeting devoted to interactions between various branches of mathematical physics such as dynamical systems, partial differential equations, probability theory and statistical physics. Being one of the most important gatherings in mathematical physics in 2005 this conference will attract around 100 researchers from around the world. By supporting American participants, especially promising young researchers, attending this meeting this project will play an important role in maintaining American leadership in the field of mathematical physics.